A Gigabits/s, VIA-Enabled Cluster Arch. for Res. in High Performance Systems Software, Scalable Knowledge Discovery, Visualization, and Parallel Planning under Uncertainty

9818489
Skjellum, Anthony
Hodges, Julia
Mississippi State University

A Gigabit/s, VIA-Enabled Cluster Architecture for Research in High
Performance Systems Software, Scalable Knowledge Discovery, Visualization,
and Parallel Planning under Uncertainty

This research instrumentation enables research projects in:

- Multi-Grain Parallel Processing,
- Scalable Knowledge Discovery,
- Parallel Volume Visualization for Computational Field Simulation, and
- Parallel Processing for Markov Model Planning.

Concurrency is an important enabling technology for several areas of computational science, unlocking the potential for new science. This research instrumentation proposal brings together three innovative
computational activities together with a fourth research activity that enhances the capability and understanding of parallel processing environments, notations, and services. Six investigators at Mississippi
State University, Department of Computer Science, undertake the following projects: enhanced infrastructure for multi-grain parallel processing (including extensions to MPI, MPI-2, and MPI/RT), scalable knowledge
discovery (artificial intelligence plus high performance computing to achieve automatic document classification and unsupervised learning algorithms), parallel volume visualization for computational field
simulation, and parallel processing for Markov Model Planning (study of fast algorithms for exact solutions to planning under uncertainty). To achieve this new science, a parallel processing cluster, consisting of thirty, two-way SMP Pentium II systems is to be assembled, together with multiple high speed networks, one of which supports the Virtual Interface Architecture for low processor overhead and high bandwidth. Commercial-grade message passing software (MPI) and scheduling software are used to provide a production environment under Windows NT immediately, in complement to the research experiments involving parallel processing that further enable the environment over time, including part-time Linux-based operation.